The Weatherwatch Leadership Network

9353451 Martin This three-year project, the Weatherwatch Leadership Network, is designed to increase and improve the teaching of weather in selected Districts in New York City. The target grade level is elementary/middle school. The project emphasizes the development of teachers' capability to provide leadership to their peers, develop appropriate curriculum materials and sue a newly developed electronic linkage which will bring weather data, weather maps and satellite cloud imagery directly into the classroom. WeatherWatch will provide participants with a summer institute, academic year support through biweekly workshops and on-site demonstrations, access to a designated-space electronic bulletin board and opportunities to exchange and present local weather information, curriculum materials and classroom projects through telecommunications, inservice courses and dissemination conferences.